Mathematical Sciences: Research in Algebraic Topology

9626639 Levine Daniel Ruberman will continue to investigate applications of gauge theory to the topology of four-manifolds. One application is to use Seiberg-Witten equations to describe bounds on the genus of a surface representing a homology class of negative self-intersection. A second is to use the Seiberg-Witten invariants to give an obstruction to isotopy of diffeomorphisms of certain reducible four-manifolds. Other projects involve a computation of Casson's invariant in terms of the Yang-Mills moduli space, and joint work with Z. Bizacka on ends of smooth 4-manifolds. Kiyoshi Igusa will study the relationship between the higher Reidemeister torsion invariants (algebraic K-theory invariants associated to the diffeomorphism space of a smooth manifold) and analytically defined invariants such as the Kontsevich integral and the Lott-Bismut analytic torsion. Using his complexified version of Bokstedt's theorem, he plans to relate the topology of circular and planar oriented graphs to algebraic K-theory. The methods to be used are Morse theory, algebraic K-theory and cyclic homology. Jerome Levine will continue his joint study, with S. Garoufalidis, of finite-type invariants of homology 3-spheres, in particular, their relationship with filtrations of various subgroups of the mapping class group of a surface. He will continue to study the Morse theory of harmonic 1-forms, in particular, the question: for every closed Morse 1-form, is there a harmonic 1-form with the same critical points and in the same cohomology class? The next case to consider is when the associated foliation has all compact leaves. He will also continue to study invariants of manifolds arising from previous work on jumps of the Atiyah-Patodi-Singer eta-invariant and return to questions about link concordance. Edgar Brown will attempt to extend his previous work on rational homotopy theory to the mod-p setting, in particular, the construction of a minimal model f or function spaces. He also plans to study the Steenrod operations in an algebraic setting and the construction of minimal models. To put it less technically, Daniel Ruberman's project is concerned with properties of four-dimensional spaces called manifolds. Among the questions under study are the existence and geometrical properties of two-dimensional surfaces sitting inside a four-dimensional manifold. Ruberman will also investigate symmetries of four-dimensional spaces in order to determine when a pair of symmetries can be joined by a one-parameter family of symmetries. The approach to these investigations is via the Yang-Mills and Seiberg-Witten equations of mathematical physics, which arise in studies of the fundamental particles. There are several formulas coming from various branches of mathematics and physics that are known to represent the same geometric phenomena that are manifested in many ways, ranging from the circles and lines in the plane to the equations of gravity. Using his knowledge of these methods, Kiyoshi Igusa will be investigating the relationship between these formulas. Jerome Levine will be working to determine those invariants of 3-dimensional manifolds that are computable in a very explicit sense and that seem to be closely related to invariants coming from quantum field theory. Edgar Brown will be studying various algebraic models of spaces that capture many of their properties but are easier to manipulate and understand. ***